Postdoctoral Fellowship: MSPRF: Combinatorial and Topological Properties of Triangulated Manifolds

This award is made as part of the FY 2026 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Yirong Yang is “Combinatorial and Topological Properties of Triangulated Manifolds”. The host institution for the fellowship is Georgia Institute of Technology and the sponsoring scientist is Josephine Yu.